Sources of Science and Technology Policy Support for State Legislatures

9321930 BRANSCOMB This project is Phase 2 of a three-phase project to study the science and technology policy support available to state legislatures and, in cooperation with legislators, to explore alternative models for meeting their needs. In Phase 1 (not supported by NSF) of this study, conducted during the spring of 1993 at the John F. Kennedy School of Government, the investigators surveyed 50 state legislatures and received 100 percent response. This high level of interest suggests that the issue is both important and timely; it does not suggest that the state legislative bodies are well supported and do not need to be exploring affordable and practical alternatives for improving their capabilities. At stake is the legitimacy of state government and the accountability of technical experts who may be advocates, critics, or advisors. Phase 2 involves the on-site study of 6 to 10 selected states to provide a valid basis for evaluation of the need for S&T support and the adequacy of current resources. A conference will be convened to review recommendations from which one or more model legislative-support structures will be designed. The final stage, which the investigators will fund from non-NSf sources, will be the implementation of the model in one or more states.